Polarized Electron Scattering from Nucleons

This research grant supports a program of electromagnetic and weak
current experiments to probe the flavor content and spin structure of protons and neutrons
(nucleons). At present, these properties of the nucleon cannot be
precisely predicted using quantum chromodynamics, the accepted
fundamental theory of the strong interaction, and so experiment must
lead the way. A series of parity-violating electron scattering experiments at the
Thomas Jefferson National Accelerator Facility (Jefferson Lab) will
enable us to determine the strange quark "sea" contribution to the
nucleon ground state. These experiments include a measurement in Hall
A of the parity-violating asymmetry in scattering from the proton at
low momentum transfer, and measurements of the asymmetry in scattering
from 4He and 208Pb. The G0 parity-violation experiment in Hall C is
moving from the design and construction stage to the commissioning and
data-taking stage. This experiment will definitively map out the
strange quark vector form factors for the nucleon as a function of
momentum transfer. A measurement of the asymmetry for the N to
Delta(1232) transition will be made simultaneously, and planned
measurements on deuterium will probe the axial form factor. A new initiative is under development to use a modified version of the G0 spectrometer to perform a parity-violation electron scattering experiment at very low momentum transfer, in order to make a sensitive
search for physics beyond the standard model. A series of polarized
electron scattering experiments at Jefferson Lab are dedicated to
elucidating the spin structure of the nucleon using polarized 3He
targets. This program is well underway, three experiments using these
targets will take place in the next year at Jefferson Lab, and a 3He
target cell lab at William and Mary supports this program.